Investigation of Diverse Representational Modes in the Learning of Physics and Chemistry

The goal of this project is to investigate the role played by diverse representational modes
in the learning of physics and chemistry concepts. We will explore the relationship between the
form of representation of complex concepts in physics and chemistry, and students' ability to learn
these concepts. We will determine the specific learning difficulties that arise as students struggle to
master concepts posed in different representational forms, and we will apply our findings
immediately to the development of improved curricular materials and instructional methods. We
will then assess the effectiveness of these new materials and methods in bringing about greater
student mastery of the targeted concepts. The issues we will investigate include the following:
1) What subject-specific learning difficulties may be identified with various forms of
representation of particular concepts in the introductory physics and chemistry curriculum?
2) What generalizations may be possible regarding the relative degree of difficulty of various
representational modes when compared with each other, in learning of particular concepts?
3) Do individual students do consistently well or poorly with particular forms of representation,
with widely varying types of subject matter?
4) Are there any consistent correlations among students' relative performance with different
representational modes, and parameters such as major field, gender, age, learning style, etc.?
5) Does the overuse or under-use of certain types of representational
forms in standard instruction have any potential impact on members of traditionally
underrepresented groups? Test instruments, consisting of sets of closely matched problems presented in several different forms of representation, will be administered simultaneously to all students in a class.
Analysis of students' responses will allow us to determine whether the learning difficulties are
concept-related or representation-related, or both. We will develop and validate many of these
closely matched problem sets, dealing with a wide variety of basic topics in the introductory
curricula. These will be administered to students enrolled in both algebra-based and calculus-based
courses, at Iowa State University and at other institutions. We will also conduct and record many
clinical interviews with individual students in order to probe in more depth their understanding of
multiple representations. As we identify widespread learning difficulties related to representational
mode, we will develop and test curricular materials specifically designed to address and remedy
these obstacles to learning.